Development of Plant Minisatellite DNA Genetic Analyses

The proposed research will develop probes that detect moderately-highly variable mini-satellite DNA genetic markers in plants. Several mini-satellite probes of this type have been developed for use with tetrapods and they have revealed a wealth of genetic polymorphic markers to the degree that some have been referred to as "DNA fingerprinting" probes. Such probes have both proven and potential applications in several fields of biology including genetic mapping and linkage analysis, pedigree analysis (paternity and maternity analyses) breeding improvement programs, and population and evolutionary genetics. Recently, it has been demonstrated that some of these same probes used with tetrapods also reveal alleles at variable loci in algae, gymnosperms, and angiosperms. The central goal of the research is to develop DNA probes for such genetic analyses of mini- satellite variable loci in plants through two experimental approaches. First, numerous probes (naturally derived and synthetic) previously used thus far only in tetrapods await exploration with plants. Second, these same probes will be used to develop plant-derived mini-satellite probes. The ultimate goal is to provide probes that are rapid, easy, and broad in application that permit "DNA genetic fingerprinting" for plants. Such probes will be a powerful new tool for the study of the apportionment and dynamics of genetic variation within and between a wide variety of plant species.